Conference on Evolution and Plant Development, Taos, New Mexico, January 26 - February 1, 1993

The Keystone Conference on "Evolution and Plant Development" will be held at Taos, New Mexico, January 26 through February 1, 1993. %%% This is the first such conference specifically organized around the evolution of plant development and thus brings together plant biologist who would not normally be present at the same meeting. Particularly, younger scientists who will be encouraged to attend, should benefit greatly from such interaction.